Solution Methods for Differential Algebraic Equations in Mechanical Simulation Systems

9362165 Rampalli Mechanical System Simulation (MSS) is the technology used to analyze systems undergoing large overall motion, such as an automobile going over a pothole or a space shuttle performing satellite retrieval. MSS formulations lead to a coupled set of Differential and Algebraic Equations called Index-3 DAE. Index reduction methods (IRM) are employed to simplify and solve these equations. Three factors determine the accuracy and stability of solutions for mechanical systems: (a) the System States selected, (b) the IRM used, and (c) the numerical integrator used. Ideally, these selections should be problem driven. Yet, most commercial MSS software apply very limited combinations of the above to all problems. We will address this limitation be developing a library of IRM and integrators, and allow for their independent selection. In Phase-I, we will enhance an Augmented Lagrangian Formulation, an IRM, to control constraint violation (ALF- CC), implement it and demonstrate its effectiveness with two integrators. ALF-CC is very accurate and fast. Unlike other IRM, it promises to solve through singular configurations, accommodate inequality constraints and system topology changes. ALF-CC will be compared to other methods. In Phase-II, we will expand this library and facilitate creation of problem specific simulators.